GRGC: The Role and Response of Terrestrial Vegetation to Climate Change During Earth History: A Climate Model Perspective

9405877 Barron PI will determine the ability of climate models to simulate terrestrial floral biomes through Earth history and assess the role of vegetation in paleoclimate predictions, and its contribution to long-term climate change. Overall objectives are: to clarify the nature of discrepancies between climate models and observations, to enable data-model comparisons, to make climate models more useful in geologic applications, to guide use and interpretation of climate model simulations for past and future simulations, and to provide insights into differing roles of climate and evolution.